Power Systems Stability and Security Assessments Using Artifical Neural Networks

This research is investigating the potential use of the emerging technology of artificial neural networks as a powerful tool for on line stability diagnostics. Because the neural networks are trainable, the technique is adaptive and suitable for on-line applications as well as for planning. With adequately trained neural networks, the stability of the power system can be quickly assessed with relatively little computational time. The technological concept being investigated is whether a large, complex neural net can be trained to indicate whether a power system is stable or unstable when the net is provided with input data on the system conditions (loads, generation, etc.). With present analytical tools, this stability assessment requires massive computational time. Successful implementation of a trainable artificial neural network will result in real time assessment of system stability and security. The ability is very much needed in the power industry.